Microscopic Surface Diffusion of Molecular Chemisorbates

This grant is in the general area of analytical and surface chemistry and in the subfield of dynamic reaction studies at metal surfaces. Professor Janice Reutt-Robey of the University of Maryland will use a unique pulsed molecular beam source to observe the time dependence of adsorption and diffusion of molecules at specific topologically distinct sites on platinum single crystal surfaces. Using infrared spectroscopic detection the amounts and types of molecular reactions sites will be determined. This will have impact on the understanding of the role of morphologically distinct sites on surface chemical reactivity. The pulsed molecular beam source will be constructed and used to study the diffusion of carbon monoxide and nitrogen monoxide over stepped platinum surfaces. The study will then move to more chemically complex systems, nitriles, with monodentate binding sites. Calibration of the infrared signal will allow absolute determination of the concentrations of species at specific sites. Further, theoretical collaboration to simulate the dynamics of molecular diffusion will be supported by the experimental results from this work.